NSF Engines: Colorado - Wyoming Climate Resilience Engine

Over the past two decades, Colorado and Wyoming have experienced intensifying wildfires, droughts, soil degradation, and air quality concerns, making these two states ideal proving grounds for innovative environmental decision-making strategies. The region's varied conditions, from high-desert plains to mountain ecosystems, present a unique opportunity to develop, test, and scale next-generation technologies that enable communities to better monitor, protect against, and adapt to impacts of natural hazards. The NSF ASCEND Engine in Colorado and Wyoming is a place-based innovation ecosystem designed to transform the Mountain West’s unique advanced sensing capabilities into scalable, real-world solutions that protect communities and fuel economic growth. The ASCEND Engine serves as a global leader and a national resource in the emerging area of AI-supported digital twin technologies.

The framework of ASCEND (Advanced Sensing and Computation for Environmental Decision-making) is the organizing construct for the Engine and drives all our investments and programs. The thesis of our Engine is to (1) bring together nationally distinctive sensing assets; (2) unlock the value of these data by leveraging the cutting-edge computational analytics of our partners; and (3) harness this innovation pipeline for the repeatable, scalable creation of actionable decision-support products and services in our core use cases: wildfire preparedness and response, air quality, water quality and availability, and soil health. In the Emergent phase, the above capabilities will converge into multi-layer digital twins — integrated, real-time simulation environments that serve as the backbone for predictive scenario modeling and autonomous, adaptive decision-support at scale. Access to real-time decision support will improve public and private responses to natural hazards, bolstering community resilience and economic development. The ASCEND Engine's impact will extend across both states, leveraging partnerships to extend science- and technology-backed resilience solutions, workforce development opportunities, and access to cutting-edge technologies to communities across the region of service. The geographic core of the NSF ASCEND Engine is strategically concentrated in communities within the region of service – spanning from Cheyenne and Laramie, Wyoming, through Fort Collins, Boulder, and Denver, and down to Colorado Springs, Colorado. This corridor is home to leading research institutions, national laboratories, startups, and industries, forming a highly connected technology and economic hub that fuels ASCEND-related technical innovation. The interdisciplinary nature of the ASCEND Engine's partnerships creates a strong foundation for innovation that translates into scalable startups. By 2033, the ASCEND Engine will establish Colorado and Wyoming as a national model for place-based innovation for advanced sensing and applied AI.